Virtual Organization for Computing Research in Pandemic Preparedness and Resilience

This Virtual Organization (VO) will facilitate communication and collaboration among CISE scientists currently involved in pandemic research through the NSF RAPID program. With the guidance of a Steering Committee composed of members from industry, academia, and government agencies, the VO will encourage the sharing of research results in a way not available without a concerted effort. The depth and breadth of multi-disciplinary collaboration enabled by this VO will be extended to include researchers, educators, and students interested in general topics related to pandemic planning and resilience. Utilizing a variety of dissemination platforms, the VO will harness the synergies of the CISE RAPID research programs to facilitate scientific advances and advance public health in the US and around the world.

The VO will: (i) facilitate the collection of a comprehensive collection of data sets, software tools, and documentation that can be shared by the research community; (ii) identification of new research efforts resulting from the cross fertilization of ideas from various subdisciplines of CISE research; (iii) a research roadmap that proposes research directions in CISE sciences that can lead to effective methods to prepare for and recover from future pandemics; and (iv) training and other pedagogic materials needed for educating future generations of scientists in topics related to pandemic preparedness, recovery, and resilience. The increased levels of collaboration fostered by this VO have the potential to result in innovative computational methods and technologies for dealing with future pandemics. The research roadmap will include identification of key research topics, risks, and gaps in the current R&D landscape that will significantly benefit the research community and serve as the blueprint for researchers, funding agencies, and policy makers on the role of information and communication technologies (ICT) in developing break-through solutions for pandemic resilience. While it is not possible to prevent pandemics completely, developing resilience techniques will enable society to prepare for and cope with the aftermath in a more effective manner.